Theoretical and Computational Study of Non-linear Waves and Instabilities

Broad-band extremely low frequency waves (BBELF) are correlated with the heating of the topside auroral ionosphere. This project will examine BBELF waves from a theoretical and computational standpoint to determine what role these waves play in the energization of ions. Results from previous research indicate that the BBELF waves are driven by plasma instabilities arising from the shear in the parallel electron currents in the ionosphere. Understanding the characteristics of the waves will lead to an understanding of the mechanism of transverse ion energization and the mechanisms that mediate the coupling of the ionosphere and magnetosphere.